NSF-CNPq Collaborative Research: Implementation and Compilation of High-Performance, Scalable Parallel Constraint Programming Systems

Proposal Number: CCR-9900320
TITLE: High-performance, Scalable Parallel
Constraint Programming Systems
PI (and CoPI's): Gopal Gupta and Enrico Pontelli

Summary:

Constraint programming incorporates efficient techniques for
solving problems that involve a large amount of search. Even
after incorporating these efficient constraint-solving
techniques, the search space can still be very large.
This project proposes to perform research on design and
implementation of constraint programming systems on shared memory
multiprocessors (SMPs) so that these compute-intensive
constraint programs can be executed much faster. Efficient
implementation techniques for realizing scalable constraint
programming systems on distributed memory multiprocessors (DMPs)
as well as on distributed clusters of SMPs will also be designed.
The project's eventual aim is to build a unified parallel system
that seamlessly runs on a distributed network of shared memory
multiprocessors. The project will be pursued in formal cooperation
with the Federal University of Rio de Janeiro (UFRJ) and the Federal
University of Rio Grande do Sul (UFRGS) in Brazil. The research
will make contributions to the area of constraint programming,
logic programming, parallel processing, and programming languages
through the new techniques developed for scalable implementation,
compilation, and optimizations.